Automated Particle Size Analysis: Addition of Detailed Sediment Analysis to the Geology Curriculum

Bates will purchase automated sedimentology lab equipment: a Micromeritics Sedigraph 5100 and IBM-compatible personal computer and software. This equipment will be used in the analysis of fine-grained sediment samples recovered in coordinated field/lab exercises in introductory geology, sedimentology, glacial and Quaternary geology courses, and in independent student research. This equipment allows rapid and detailed particle size analysis, data reduction and graphic presentation of analytical results with a minimum of time expenditure and sample preparation. Grain size distribution of sediments is often a function of the basic energy imparted to materials by wind, water, or glaciers. Hence, the analysis of grain size of sediment is a critical descriptive tool used by sedimentary geologists to help to fingerprint depositional processes or environments of deposition. Students in geology curriculum at Bates Collge are introduced to these processes and environments through field work in introductory and more advanced courses, intensive short term courses and senior thesis research. Automated sediment analysis will enhance the existing curriculum and facilities in the geology department. In addition, the new facility will introduce students to modern sedimentological techniques and allow them to conduct more detailed and accurate analyses of geologic materials. The college is matching the grant with an equal amount of funds.